Inverse Problems in Geometry and Partial Differential Equations

DMS-0408419
Title: Inverse problems in geometry and partial differential equations
PI: Peter A. Perry, University of Kentucky

ABSTRACT

This project involves inverse spectral and scattering theory in three areas
of mathematical investigation: (1) the spectral theory of two-step
nilpotent groups and compact nilmanifolds, (2) the inverse resonance problem for
exterior domains and scattering manifolds, and (3) inverse scattering for
singular potentials with applications to nonlinear dispersive equations.
Two-step nilpotent lie groups play an important role in pure mathematics as
models of sub-Riemannian geometry and as a rich source of examples of
manifolds with identical Laplace spectra but distinct geometries; a
detailed investigation of the trace formula for these manifolds will be
carried out using analysis on nilpotent Lie groups. Resonances are
discrete scattering data for non-compact manifolds analogous to the
eigenvalues of the Laplacian on a compact manifold; the inverse resonance
problem will be investigated in the contexts of conformal and
asymptotically flat geometries, and invariants such as the determinant will
be studied. Nonlinear dispersive equations with singular initial data may
be viewed, via the inverse scattering method, as linearized flows for the
scattering data of a very singular potential. We hope to extend the inverse
scattering picture for the KdV and mKdV equations to such singular data and
obtain greater insight into these dynamical systems--by constructing the
flow on Hilbert spaces of initial data which are singular but very natural
from a dynamical point of view.

Inverse spectral theory is the mathematical discipline that
underlies important applications of mathematics to medical imaging,
geophysical prospection, non-destructive testing, and many other areas.
In these applications, properties of a physical
system (a human body, the earth, or an industrial material) are
deduced from its response to externally imposed stimuli (electromagnetic
radiation, seismic waves, or ultrasound). The properties deduced may
loosely be described as the "geometry" of the system and its response
to external stimuli the "spectral data" (or "normal
modes"). A deep result of the study of completely integrable systems is
that certain physical phenomena, such as the propagation of waves in
shallow water, can be solved using an associated inverse spectral problem.
Thus advances in inverse spectral theory lead to a better understanding of
how such nonlinear waves propagate. The impact of this project will be
twofold: first, it will elucidate, by studying carefully chosen geometric
contexts, the relation between speectrum and geometry. Secondly, it will
deepen our understanding of nonlinear dispersive waves by extending tools
of inverse scattering theory to study nonlinear wave propagation with
very singular waves.